Flexible Krylov Subspace Projection Methods for Inverse Problems

In many scientific and engineering applications, it is necessary to
solve an inverse problem; that is, to determine quantities defining an
object or a system through indirect measurements. The mathematics
used to produce images in devices such as X-Ray Computed Tomography
(CT) and Magnetic Resonance Imaging (MRI) are excellent examples. The
mathematical models describing an inverse problem are often so
complicated that it is not possible to find an exact analytical
solution, and it is necessary to use an approximation based on a set
of simpler equations. However, many equations may be needed; in
medical imaging, for example, it is not unusual to compute
approximations by solving millions of equations. Additional
complications arise because an inverse problem may have infinitely
many solutions, or the solutions may change dramatically if there are
small errors in the indirect measurements. Thus, additional
constraints and mathematical tools (often referred to as
regularization) are needed to narrow the search to a set of
appropriate feasible solutions, and to stabilize the computations.
The type and amount of regularization is problem dependent, requiring
the algorithms to be able to easily adapt to user and/or problem
specifications. The aim of this project is develop a flexible and
adaptable computational platform that can be used for this important
class of problems, which arise in many application areas, including
space object identification, geophysics, microscopy and medical
imaging. Thus advancements made from this project have the potential to
benefit national defense, energy exploration, and human health.

Efficient iterative methods to compute regularized solutions of
large-scale discrete ill-posed inverse problems will be developed.
The approach will use flexible Krylov subspace iterative methods, and
will exploit low-rank structure of data, solutions and operators. The
approach will allow to incorporate a variety of regularization
techniques, including sparse and low-rank constraints on the solution.
The methods developed in this project can be used as tools to obtain
approximate solutions of ill-posed inverse problems, and optimized
implementations will be included in a new MATLAB package called IR
Tools (Iterative Regularization Tools).